A Thermodynamic Scale for the B-sheet Forming Tendencies of the Amino Acids

Regan 9316863 Amino acids have distinct conformational preferences that influence the stabilities of protein secondary and tertiary structure. The degree to which different amino acids favor the formation of a particular secondary structure is important in understanding the relationship between protein sequence and structure. In the case of a-helices, a number of studies have determined a thermodynamic scale of the helix-forming tendencies of the amino acids. There is reasonable agreement among these studies and between these experimentally determined preferences and the statistically observed preferences in proteins of known structure. The study of B-sheets, on the other hand, has not been similarly successful because of aggregation and solubility problems with the model systems used to date. As a result, there has been only one published attempt to generate an analogous scale for the B-sheet forming tendencies of all the amino acids. The experiments proposed here will avoid the difficulties of aggregation that other groups have encountered by using a small, soluble, naturally occurring protein composed mostly of B-sheet as the model system. The protein of choice for these studies is the 56 residue IgG-binding binding domain of Streptococcal protein G ("B1"). This protein displays an ideal, reversible two-state denaturation transition and its structure is known at high resolution. To quantify the B-sheet forming tendency of the amino acids, each of the amino acids will be substituted into an idealized "guest" position in this protein. Thermal and chemical denaturation measurements will be made to determine the free energy difference between each variant and a standard B1 with Gly at the guest position and it is this difference that is considered to be a measure of the guest's capacity for the B-sheet formation. These experiments will provide both workable system for analyzing the factors involved in B-sheet stability and a comprehensive quantitative sc ale of the B-sheet forming ability of the amino acids. %%% Proteins are large molecules that perform many important functions within a living cell. They are formed from 20 different types of building blocks, called amino acids, the linear sequences of which dictates the shape of the protein and what its function will be. The amino acids are not strung together randomly, but rather they first form sub-assemblies, known as secondary structures, that then associate to give the folded protein. There are two types of secondary structure: alpha-helices and beta-sheets. This proposal aims to determine a quantitative scale for how likely it is for each amino acid to be found in beta-sheet secondary structure. This knowledge is of key importance to the understanding of protein structure and the rational modification and design of potentially useful, new proteins. ***